Blurring the Borders between Vision, Cognition and Action Symposium

The interactions between vision, cognition and action are much more extensive than previously believed. This is the central motivation for the 26th Symposium of the Center for Visual Science (CVS), entitled "Blurring the Borders Between Vision, Cognition and Action," scheduled for May 29-31, 2008 at the University of Rochester. Twenty researchers who work with neurophysiological, anatomical, behavioral or computational perspectives will participate. Topics will include: Visual and Cognitive Circuits, Visual Signals in Cognitive Circuits, Cognitive Influences on Visual Processing (including attention, context and learning) and Vision During Action. To attract younger scientists, ten travel fellowships will be awarded to graduate students or postdoctoral students who will present their work in a poster session.